Nonequilibrium Dynamics and Mode Locking in Charge Density Waves and Flux Lattices

Sliding charge density waves and flux lattices in superconductors exhibit unusual transport properties due to cooperative phenomena and quenched impurities. In the past these systems were studied using mean field theory and small scale simulations on sequential computers. These simulations provided good qualitative results and insight, but failed to provide quantitative answers. Recently large scale simulations on parallel computers, such as those carried out by the principal investigators of this grant and their collaborators, have begun to yield new quantitative results in this field. Motivated by these advances, parallel architectures will be exploited in this grant for an extensive study of the collective dynamics of charge density waves and flux lattices. In their simplest version, the numerical models for these systems are well suited for parallel machines. Our research emphasizes the search for new algorithms for an efficient parallelization and the use of visualization techniques. The second stage of our research will focus on strongly disordered elastic media, where dislocations can tear the lattice, and Multiple Instruction Multiple Data architecture will be more suited for numerical studies. The dynamics of strongly disordered elastic media is both a problem of great theoretical interest in condensed matter physics and a testing ground for developing new algorithms for a Multiple Instruction Multiple Data environment. This research is funded jointly by the Materials Theory program in the Division of Materials Research and the New Technologies program in the Division of Advanced Scientific Computing. The grant is funded through the Computational Approaches to Real Materials program which is under the High Performance Computing and Communication Initiative. %%% This theoretical and computational research will focus on two problems that share common computational requirements. One problem deals with the movement of electric charge in solids due to wave motion, while the other deals with high temperature superconductors. The research is of fundamental interest to the materials research community and also has potential to impact industrial applications. What makes this research program unique is the use of new massively parallel computers to deal with these problems for the first time. This raises the possibility for significant breakthroughs, in addition to the development of new algorithms for similar problems in other areas of computing.